III-SGER: Spatio-Temporal-Thematic Queries of Semantic Web Data: a Study of Expressivity and Efficiency

Spatial and temporal data are critical components in many applications.
This is especially true in analytical applications ranging from scientific
discovery to national security and criminal investigation. This exploratory
research develops of new methods for modeling and querying spatial, temporal
and thematic (STT) data. The methods differ significantly from traditional
approaches for STT data management; they follow a paradigm that goes beyond
querying for resources to querying about the relationships between resources.
Three STT data management advances this will lead to are:
(1) new query operators that exploit the graph-centric nature
of Semantic Web data models, (2) new indexing and query processing
techniques for STT data that are specialized for Semantic Web data models
and (3) an extension of the SPARQL RDF query language to support STT queries.

A second aspect of this project is to compare the STT-RDF
approach described above with an alternative approach based on OWL-DL
and qualitative spatial and temporal reasoning. This exploratory
study evaluates whether the STT-RDF analytics approach provides a
more efficient and expressive query language than the
OWL-DL approach with space-time ontology. Specifically,
(1) for the queries that can be encoded in both the formalisms,
is the former implementation more efficient? and (2) are there
queries that can be formulated in the STT-RDF analytics formalism
that cannot be expressed as OWL-DL queries?

Throughout this project, special attention is given to
repeatability of experimental results. All code will be open source,
and all benchmarks, datasets and ontologies will be available
through the project web site at
http://knoesis.wright.edu/research/semweb/projects/stt/